Oil-Water Interfacial Synthesis as a Benign and Safer Alternativ to Conventional Liquid-Phase Syntheses

Organic syntheses are often carried out in organic solvents, some of which are toxic, hazardous, or environmentally troublesome. The choice of a solvent for a homogeneous synthesis reaction is often limited by the multiple functions required of the solvent. Two of the more important functions are: (1) solubilization of the reactants, reaction intermediates, and catalyst, and (2) rate or selectivity enhancement through the participation of the solvent as a base or as a catalyst ligand. In the aerobic coupling of 2,6- dimethylphenol, which is the basis of the commercial production of poly(2,6-dimethyl-1,4-phenylene oxide) (PPO), pyridine and nitrobenzene are often used as the reaction media because of their high solubilities for dimethylphenol, PPO, and cuprous chloride (the coupling catalyst). But solvents such as pyridine and nitrobenzene are highly toxic and noxious. Their use presents health, safety and environmental concerns and alternate solvents and technology need to be explored. The objective of this research is to develop oil-water interfacial synthesis as a benign alternative to conventional syntheses that require the use of toxic solvents. This technique involves a combination of innocuous oil and aqueous phases in place of the toxic organic solvent. The multiple functions which previously limited the choice of solvent are here decoupled and are met separately by a biphasic mixture. The desired reaction is effected at the oil-water interface by means of a surface-active complex and by pH control of the aqueous phase. This project will further develop the interfacial technique so that it may be (1) optimized and adopted for commercial PPO synthesis and (2) extended to other synthesis reactions that have commercial potential. The research will receive intellectual input and possible long- term financial support from Mallinckrodt Specialty Chemicals Company.